Oceanographic Instrumentation

9618859 Freitag This award to University of Rhode Island will provide new sensors and sampling equipment for seawater studies, new shipboard computers and new slip rings for use with fiber optic instrumentation on the research vessel Endeavor, operated as part of the University National Oceanographic Laboratory System research fleet. The shared-use instrumentation supported here will assist ocean researchers conduct studies in the North Atlantic Ocean in 1997 and in future years. ***